The American Mathematics Project: Teachers Helping Teachers

The American Mathematics Project is a three-year program designed to enhance mathematics teacher competence by increasing substantially the number of local Mathematics Teacher Projects (MTPs) in the United States. An MTP is a local cooperative effort by teachers, college and university faculty, and professionals in industry to stimulate excellence in teaching at all levels, but especially in grades K-12. The project will first organize and conduct a national MTP Workshop to bring together teams from 20 local areas interested in establishing MTPs in their communities and 25 resource leaders from existing successful MTPs. The Workshop will allow for extensive discussions between mentors and the participant teams and help the teams formulate specific action plans for local implementation. During the two-year period following the Workshop, the AMP staff will maintain close ties to the 20 teams and provide assistance to them in several ways until active MTPs have been launched. This assistance will include a quarterly MTP Newsletter containing useful news and information for the developing MTPs, and consultant visits to the sites of developing MTP's. In addition, an MTP Resource Manual will be published, using the experience of the Workshop and follow-up activities, containing a comprehensive kit of information and guidance for emerging MTP's.